Range Arithmetic

Range arithmetic is a computer arithmetic more advanced than ordinary floating-point arithmetic. It permits many numerical problems to be solved in such a way that answers are obtained correct to a prescribed number of decimal places. Range arithmetic is presently available as a set of code files that enable a user to compose programs in the C++ language. This research is for continuing the development and propagation of these files, and for investigating whether certain problems requiring extensive computation , especially problems of partial differential equations, can be solved precisely with range arithmetic. Also, the possibility of providing range arithmetic in another form, more suitable for such extensive problems, will be investigated.